Fundamental Studies of Visible Superfluorescence and Atom- Field Interations in an Optical Resonator (Physics)

Fundamental studies of visible superfluorescence and atom- field interactions in an optical resonator are proposed. The objectives are: To demonstrate and study visible superfluorescence and other related cooperative radiation effects in an optical resonator. To design an experiment to study steady-state coherent emission of an atomic beam in a resonator. To obtain large enhancement and suppression of visible spontaneous emission, and to demonstrate a single atom laser and study other single atom and single photon phenomena.